Knots in Washington: Conferences on Knot Theory and its Ramifications 2008-2010

Abstract

Award: DMS-0817858
Principal Investigator: Jozef H. Przytycki, Yongwu Rong,
Alexander N. Shumakovitch, Hao Wu

A series of conferences devoted to knot theory and its
ramifications will be held in 2008-2010, continuing the "Knots in
Washington" conferences held every semester in the greater
Washington, D.C. area since fall 1995. Plenary talks will
survey the state of knowledge in areas such as Khovanov homology,
Heegard Floer homology, and categorification of existing
invariants such as skein modules. Contributed talks and periods
devoted to interaction among participants provide opportunities
for graduate students and recent PhDs to be a part of "Knots in
Washington," and the organizers encourage students and junior
researchers to attend these meetings.

Low dimensional topology studies shapes of three and four
dimensional spaces. These dimensions are of particular interest
to us because they are the dimensions of our space and our
space-time. Knot theory is a subfield of low dimensional
topology, which studies the knottedness in our space. One of the
main goals of knot theory is to distinguish knotted objects. This
is often done by means of the so called "knot invariants,"
functions that replace geometric objects, such as knots, with
those that are easier to compare. Over the past two decades,
there have been a flourish of new invariants in low dimensional
topology, boosted by ideas from gauge theory, quantum algebras,
and mathematical physics. The purpose of the "Knots in
Washington Conferences" is to bring together the researchers of
the field, including established mathematicians as well as
graduate students and recent PhDs, to discuss the state of the
art of the subject. The conference web page is
http://home.gwu.edu/~przytyck/knots/index.html.